CAREER:Theory and modeling of a mono-molecular field effect organic transistor (MOLFET)

Proposal Number: ECS-0643420

Proposal Title: CAREER: Theory and modeling of a mono-molecular field effect organic transistor (MOLFET)

PI Name: Pati, Ranjit

PI Institution: Michigan TechnologicalUniversity

The objective of this research is to design a mono-molecular three-terminal field effect transistor in which the gate electrode will be separated from the channel by a molecular throttle, unlike the insulating oxide layer, which has been used thus far in conventional transistor design. First principles density functional theory in conjunction with the non-equilibrium Green's function approach will be used to understand the controlled electron transport in this device for assessing its potential application.
Intellectual merit The proposed supra-molecular architecture that will be investigated consists of a channel unit which provides pathways for current between source and drain, and a controlling gate involving a throttle, which will modulate the current in the channel. The role of molecular throttle and channel will be systematically explored and quantum transport calculations will be carried out to optimize the design of the transistor for a significant current modulation with the application of a local electrostatic field at the gate.
Broader Impact-This research will: (a) identify an innovative mono-molecular field effect transistor architecture for applications in molecular computing far beyond the projected Technology Roadmap for the year 2015; (b) discover the physical mechanism behind the operational principle of this device, which is essential for its practical realization; (c) stimulate collaboration both at the national and international level; (d) provide avenues for involving undergraduate students in research; organizing workshop for the high school students to educate them about the broader prospects of molecular electronics through the development of video animation; disseminating the results to broader audience.